Post-Doctoral Training in Mobile Information Access

EIA-0000484
Satyanarayanan, Mahadev
Carnegie Mellon University

Post-doctoral Training in Mobile Information Access

CISE Postdoctoral Associates in Experimental Computer Science: Postdoctoral
Training in Mobile Information Access

Postdoctoral training in the broad area of mobile information access will
be offered that has four research thrusts:

1) Systematic and thorough evaluation of the performance characteristics of
the Odyssey mobile computing platform and the Coda File System, including
identification of appropriate performance metrics, design of synthetic
workloads and benchmarks, instrumentation to collect usage data, and
analysis of results.

2) Exploring the scalability of Odyssey and Coda involving the design of
carefully controlled experiments that stress the limits of these systems.

3) Designing and implementing mechanisms in Odyssey and Coda that
opportunistically exploit compute servers and intermediate caches in the
infrastructure close to a mobile computer.

4) Developing a methodology and a set of techniques and tools for
generating system configurations that are well-fitted to the unique
characteristics of mobile computing hardware.

In addition, opportunities will be offered to participate in the mentoring
of graduate and undergraduate students and guest lecture in courses.